CEDAR: Tidal, Planetary, and Gravity Wave Studies in the Mesosphere and Lower Thermosphere Using an MF Radar in Hawaii

The proposed research will extend the Hawaii MF radar data set (compiled since September, 1990) and provide for its analysis in several collaborative efforts with other instrumentation and scientists. MF radar data, available for all CADRE measurement campaigns and the ALOHA-93 campaign, will also provide an extended overlap with data from similar radars at other locations. Possible studies address topics ranging from gravity wave propagation, filtering, and forcing of the middle atmosphere to tidal and two- day modulation and interactions.